EAGER Collaborative Research: Early career chief scientist training for biological and chemical oceanographers

Intellectual Merit:
The PIs request funds to provide training in leading and organizing research cruises to early career researchers in the areas of Biological and Chemical Oceanography. Participants in this training program would be introduced to pre-cruise planning and logistics, receive training in commonly used oceanographic sampling equipment, and conduct shipboard measurements during a 10-day oceanographic cruise to the North Pacific Subtropical Gyre (NPSG). The goal of this training program is to prepare early career scientists for leading and participating in interdisciplinary oceanographic research at sea.

Broader Impacts
The proposed program addresses the broader impacts criteria successfully. The research cruise and follow-up reports and publications focus on interdisciplinary questions important for advancing the field. Given the rapid changes that oceanic systems are undergoing, it is important to have a cadre of junior scientists who are adept at managing interdisciplinary collaborations and conducting research at sea. The PIs are considering ways to connect with diverse audiences in recruiting participants. The impact on early career oceanographers will be very strong. This will create an experience that will be a major impact on the careers of the trainees, especially if they stay in the oceanography field.

The Statement of Merit Review
"" This statement is non-editable and added to every proposal Abstract once it has been saved in eJacket. This statement is viewable after the Abstract has been saved, and is read-only.